Micromechanical Deformation

This grant investigates micromechanical deformation using atomic force microscopy, continuous indentation testing, and impression creep analysis. These techniques are applied to several materials systems (bucky balls, amorphous metals, polymers) to develop new tools for micromechanical testing applicable to thin films. Nanoindentation experiments are planned using the atomic force microscope and its associated small indenter. Shear bands are examined in polymers and amorphous metals. Theoretical support includes consideration of the molecular dynamics of the interaction between bucky balls, finite element analysis of continuous loading and unloading with an indenter, and diffusional creep at aluminum grain boundaries. %%% The results impact the area of micromechanical measurement of thin films and small particles. Crack nucleation, erosion, and localized deformation are examples of microdeformation phenomena that would benefit from improved analysis techniques.